Student Travel Support for the CGO 2017/HPCA 2017/PPoPP 2017 Symposia Co-located in Austin, Texas

Title: Student Travel Support for the PPoPP 2017, CGO 2017, and HPCA 2017 Symposia Colocated in Austin, Texas

This award will support student travel to three co-located conferences: the ACM SIGPLAN Symposium on Principles and Practice of Parallel Programming (PPoPP 2017), the International Symposium on Code Generation and Optimization (CGO 2017), and the International Symposium on High-Performance Computer Architecture (HPCA 2017). The conferences are being held in Austin, Texas during February 4–8, 2017. These conferences are top-ranked in the fields of parallel programming, compilers, and computer architecture. Supporting student travel to attend professional conferences and workshops is a very important mission of the NSF. Broader impacts include fostering the next generation of researchers in these research areas, as well as providing international experiences to build a globally-aware workforce. In particular, students will have the opportunity to learn state-of-the-art methodologies, be exposed to novel techniques, and to interact with senior researchers in their areas of expertise. The student selection process takes into account both merit and financial need, and requires support letters written by academic advisors. A strong emphasis is put on supporting women and underrepresented groups.